U.S.-Chinese Workshop on Sediment and Environmental Studies

0204450
Melching

This is a U.S.-China joint workshop proposal on sediment transport and environmental studies submitted by Dr. Charles Melching, Marquette University, in cooperation with Dr. Zhao-Yin Wang, Tsinghua University, Beijing, China. The meeting will be held in Milwaukee, Wisconsin in July 2002. This is the second of the two workshops on river sediment related problems. The first was on sediment transport and sediment-induced disasters in Beijing, China in March 1999. The topic of the second workshop is important and could contribute to the U.S.-China cooperation on research concerning remediation of comtaminated sediments and restoration of river ecosystems. The NSF and the Natural Science Foundation of China jointly support this workshop.